Chemistry Laboratory and Curriculm Improvement For Freshmen-Sophomore Instruction At UW Center-Marshfield/Wood County

9351403 Hall The project will purchase visible spectrophotometers for use in the freshman course as well as Fourier transform infrared (FT- IR) spectrometer for the freshman and sophomore organic course. This equipment will allow a major upgrade in the chemistry offering at this two year college. This is part of a continuing effort, begun in 1989 to upgrade the chemistry curriculum and has included the introduction of microscale experiments which will be enhanced by the proposed instrumentation. ***